COASSTal Communities of Science

COASSTal Communities of Science is a citizen-science project whose goal is to increase the scientific and educational reach of a highly successful, action-oriented and rigorous citizen science program - the Coastal Observation And Seabird Survey Team (COASST), by adding a new data module on marine debris that will feature innovative technological approaches including mobile apps and web-based crowdsourcing. The marine debris module will complement an existing module on beached birds, allowing COASST to more completely assess coastal environmental health. For instance, marine debris data, focused particularly on issues of invasive species, harm to wildlife, and debris sourcing, will be immediately useful in marine science and resource management. Once designed and vetted by professional scientists and science educators, the new module will be implemented by citizen scientists in over 100 in-community trainings conducted throughout the COASST geographic range, from northern California to the coast of Alaska, including remote coastal communities with limited access to scientific information. Over 1,000 new participants will join the program, bringing the total number of active volunteers to 2,000 within the 4 years of the project.

A complementary social science research component will advance the field of informal STEM learning by focusing on the factors facilitating recruitment and especially retention in citizen science projects, using COASST as a model. The current models of science learning in informal contexts will be extended by bringing them together with conceptual approaches to the development of interest, communities of practice, and activity theory. Research will specifically focus on differences in individual motivation to join COASST; follow participants as they enter the program and eventually become central members of the COASST community of practice; and assess the degree to which individual, programmatic and socio-cultural factors contribute to participant retention. A linked independent evaluation will assess the depth of learning individuals experience as a function the training and materials they receive, and amount and type of data they collect. Both research and evaluation components will utilize pre/post surveys, interviews, and longitudinal journaling.